Community College/University Cooperation in NDE Engineering Education and Articulation

Abstract This award supports a collaborative program to enhance education in nondestructive evaluation/nondestructive testing (NDE/NDT) that builds upon prior work by the Center for Nondestructive Evaluation, College of Engineering, Department of Aerospace Engineering and Engineering Mechanics at Iowa State University and selected community and technical colleges. Students and instructors in two year NDT/NDE programs at Cowley County Community College (Kansas), Hutchinson Technical College (Minnesota), Moraine Valley Community College (Illinois), Northeast Iowa Community College, and Southeast Community College (Nebraska) will be eligible for competitive selection into structured summer and transfer programs at Iowa State University. Two primary thrusts of this program are: 1) Enhance and encourage transfer of two year NDE/NDT program students to Iowa State University engineering programs. 2) Provide professional development opportunities for community/technical college NDE/NDT instructors that are aimed at upgrading technical and educational skills of the instructors and improving articulation from the two year NDE/NDT programs to undergraduate engineering programs at ISU and elsewhere.